Magnetic Resonance Under High Pressure

Dr. I. Y. Chan is supported by a grant from the Experimental Physical Chemistry Program to study electron signals from matter under very high pressure. These measurements provide valuable insight into the properties of electrons in molecules, generally, and the ability of electrons to dictate the structural and dynamic properties of molecules in solids, specifically. This research involves three areas of activity: (1) the extension of the high pressure spin-echo technique to conventional microwave detection. This will greatly increase the utility of magnetic resonance under pressure; (2) investigation of pressure effects on the molecular properties of organic triplets, such as photophysical processes and charge-transfer interactions; (3) pressure will be employed as a new dimension in elucidating dynamical processes in molecular crystals such as tunneling, spin-diffusion, libration and exiton transport.